Mechanical Modeling and Simulation of Ferromagnetic Fe Particle Reinforced Elastomer Composites for Automotive Applications

0084629
Sun
This research is supported under the initiative Exploratory Research on Model-Based Simulation. Analytical and numerical tools are developed to efficiently predict the effective magneto-mechanical behavior of ferromagnetic Fe particle reinforced elastomer composites and their structures. The project focuses specifically on the effects of saturated magnetostriction of Fe particles, finite hyperelasticity of elastomer matrix, and the fabrication curing-induced residual stresses, on the effective constitutive behavior of these composites.
Model-based simulations using newly developed meshfree numerical procedures are performed on an automobile engine mount example to demonstrate structural responses and provide reliable information for the engineering design.

The modeling and simulation of magnetostrictive elastomer composite structures is intended to decrease design process time and cost, by reducing component testing, and to increase the simulation accuracy of the structures. The proposed three-dimensional material constitutive model is able to illustrate the overall magneto-hyperelastic behavior of Fe particle-reinforced elastomer composites.
***